RET Site: Bioengineering Toolkits for 4th Grade Teachers (BET 4Teachers)

This award provides funding for a three year continuing award to support a Research Experiences for Teachers (RET) in Engineering Site program at the University of Kansas, entitled, "RET Site: Bioengineering Toolkits for 4th Grade Teachers (BET 4Teachers)", under the direction of Dr. Elizabeth A. Friis.

This RET in Engineering Site will bring together bioengineering faculty and graduate students from the University of Kansas to partner with the Greenbush, Kansas Southeast Kansas Education Service Center to provide research experiences in bioengineering for a total of eighteen 4th and 5th grade elementary teachers and development of teachers toolkits for use in their classrooms.